REG: Ultrasonic Resonance Spectrometer

Necessary components will be purchased to construct an ultrasonic resonance spectrometer. The equipment will be used for several research projects involving the evaluation of the mechanical properties of materials, particularly the elastic constants. The intended use of the apparatus is to measure the resonant frequencies of free vibration of materials of very small size that have been manufactured or already exist in the shape of a parallelepiped, a sphere, or a cylinder. Using numerical techniques that are currently being developed, approximations to these frequencies are also evaluated using the theory of elasticity. By comparing the measured frequencies with the calculated frequencies and minimizing the difference between these values, optimal estimates can be obtained for the elastic constants. The measurements system will allow a wealth of material studies to be completed and can be used to study any solid: metal, ceramic, semiconductor, polymer, composite, and so on. Other uses include the effects of temperature and pressure on the elastic constants, general structural vibration studies, and internal friction measurements. The system possesses both scientific and practical potentials, and will provide the opportunity to establish a new standard method for measuring material properties.